Collaborative Research: Changing Culture in Robotics Classroom

Computational and algorithmic thinking are new basic skills for the 21st century. Unfortunately few K-12 schools in the United States offer significant courses that address learning these skills. However many schools do offer robotics courses. These courses can incorporate computational thinking instruction but frequently do not. This research project aims to address this problem by developing a comprehensive set of resources designed to address teacher preparation, course content, and access to resources. This project builds upon a ten year collaboration between Carnegie Mellon's Robotics Academy and the University of Pittsburgh's Learning Research and Development Center that studied how teachers implement robotics education in their classrooms and developed curricula that led to significant learning gains. This project will address the following three questions:

1.What kinds of resources are useful for motivating and preparing teachers to teach computational thinking and for students to learn computational thinking?
2.Where do teachers struggle most in teaching computational thinking principles and what kinds of supports are needed to address these weaknesses?
3.Can virtual environments be used to significantly increase access to computational thinking principles?

The project will augment traditional robotics classrooms and competitions with Robot Virtual World (RVW) that will scaffold student access to higher-order problems. These virtual robots look just like real-world robots and will be programmed using identical tools but have zero mechanical error. Because dealing with sensor, mechanical, and actuator error adds significant noise to the feedback students' receive when programming traditional robots (thus decreasing the learning of computational principles), the use of virtual robots will increase the learning of robot planning tasks which increases learning of computational thinking principles. The use of RVW will allow the development of new Model-Eliciting Activities using new virtual robotics challenges that reward creativity, abstraction, algorithms, and higher level programming concepts to solve them. New curriculum will be developed for the advanced concepts to be incorporated into existing curriculum materials. The curriculum and learning strategies will be implemented in the classroom following teacher professional development focusing on computational thinking principles. The opportunities for incorporating computationally thinking principles in the RVW challenges will be assessed using detailed task analyses. Additionally regression analyses of log-files will be done to determine where students have difficulties. Observations of classrooms, surveys of students and teachers, and think-alouds will be used to assess the effectiveness of the curricula in addition to pre-and post- tests to determine student learning outcomes.